Improvement of the Coldroom Collections for Ornithology andMammalogy at California Academy of Sciences

The Coldroom facility for storage of bird and mammal pelts will be improved to enhance conservation of these collections. A unistrut system will be constructed that will maximize space in the Coldroom as well as providing an inert frame for draping pelts. The collection will also be reorganized to provide more space and to make searching the collection much easier.